AIT (U.S.) - CCNAA (Taiwan) Cooperative Research: Application of Adaptive Pattern Recognition in Regional Seismic Risk/Damage Assessment

This is a one year cooperative research project proposed by Dr. Albert Tung, San Jose State University and Professor Weiling Chiang, National Central University, supported by the AIT (U.S.) - CCNAA (Taiwan) Cooperative Science Program. This project plans to develop a non-parametric earthquake intensity forecast model for prediction of spatial distribution of seismic intensity. This model can be used for seismic risk and damage assessment and represents an improvement over currently used risk/damage assessment procedures. Taiwan is one of the major earthquake areas. The additional data from Taiwan will provide information on seismic conditions not available in the U.S. The result is an improvement in scope and accuracy of the earthquake intensity forecast.